Undergraduate Neurosciences Summer Research Program in Mechanisms of Behavior

9322288 Hall This award provides funds to the Undergraduate Neurosciences Program at Duke University plans a summer research program for undergraduates who will have the opportunity to become involved in neuroscience research at a major university Research and training experiences will be organized around the theme of "Mechanisms of Behavior" The emphasis on integrative, systems, and behavioral neuroscience that unifies faculty research interests within this interdisciplinary field at Duke serves as the common theme for the individual projects available to student participants in the program The focus of the ten week summer program for each student will be a research mentorship with a participating faculty member Three weekly seminar series -- "Research in the Neurosciences," "Science Basics," and "Science Ethics and Practice" -- will be included in the summer schedule "Research in the Neurosciences" will focus on ongoing faculty research so that students gain exposure to the field of neuroscience research beyond their own mentor's specific interests "Science Basics" will address practical matters pertaining to science careers"Science Ethics and Practice" will bring in outside speakers to address ethics issues such as fraud and animal welfare, and will also involve panel discussion of practical topics such as balancing career and family, life as a science graduate student, and continuing research as an undergraduate The summer program will begin with a two day Orientation Conference and will close with a Research Forum at which students present their results Applications to participate in "Mechanisms in Behavior" will be accepted from sophomore undergraduates. The Program is especially interested in receiving applications from undergraduates at liberal arts colleges. ***